IIS: Rapid Development of a Frame Semantic Lexicon

The FrameNet Project at the International Computer Science Institute
is building a uniquely detailed lexicon of English, both readable by
humans and usable by computers for natural language processing
(NLP). It is based on the theory of Frame Semantics, originated by
Charles Fillmore, which recognizes that the meanings of many words are
best understood in relation to semantic frames defining the set
of participants and props in an event or state. For example, in
"Alicia boiled the potatoes for 20 minutes", the word "boiled" evokes a
frame involving Alicia as the Cook, the potatoes as the Food, and 20
minutes as the Duration---but also some kind of Container (a pot?) and
some Heating instrument (a stove?)--these are not mentioned, but are
essential parts of the frame. Frames range from very simple, like
Placing, to very complex, like Revenge.

Since 1997, the FrameNet project has been describing semantic frames
(currently > 750, containing roughly 10,000 word senses), and
annotating sentences which evoke them (> 135,000), showing which words
play which roles in the frame. Annotated sentences are then
automatically tabulated to produce a lexical entry exemplifying
all possible syntactic patterns for each frame-evoking word. This
lexicon is used in hundreds of NLP research projects around the world;
and similar projects are underway for other languages.

This methodology is, however, very labor-intensive, requiring careful
examination of sentences in the corpus to guarantee that all semantic
and syntactic combinations are extracted and annotated. This award is
for a three-year effort to integrate sophisticated tools for grouping
corpus examples, (developed by Adam Kilgarriff), into the FrameNet
extraction and annotation work, enabling staff to find syntactic
patterns faster and annotate examples semi-automatically, thus rapidly
increasing the number of words covered and making the FrameNet lexicon
useful in more practical NLP applications. For further information,
visit http://framenet.icsi.berkeley.edu.